SBIR Phase I: High-Efficiency PTFE Membranes

This Small Business Innovation Research (SBIR) Phase I project will support the development of high efficiency expanded-PTFE (ePTFE) membranes. Inexpensive, asymmetric membranes will be developed, which offer high filtration efficiencies in the nanometer range and considerable energy savings over conventionally fabricated membranes. In this Phase I work, we will demonstrate our concept and produce membranes which are capable of achieving 99% filtration efficiency in the 20 nm size range, and which show >50% savings in energy requirements over the best performing competing products.

These advanced ePTFE membranes have application in existing industries as diverse as air purification, microelectronics and pharmaceuticals manufacturing, viral filtration and for the protection of sensors. Our manufacturing process can be performed on a batch or a roll-to-roll basis and could ultimately be adapted to produce a family of ePTFE membranes with multifunctional separations capabilities which do not sacrifice cost for efficacy.